Binary Compact Objects as Astrophysical Sources of Gravitational Waves

Compact objects (neutron stars or black holes) can be found in nature
in close binary systems orbiting each other. Such systems are expected
to emit gravitational radiation of high frequency and therefore are
thought to be excellent source candidates for the Laser Interferometer
Gravitational-wave Observatory (LIGO) planned to become operational in
the next couple of years. Theoretical studies of such astrophysical
sources of gravitational waves will be undertaken by the PI and a
postdoctoral fellow, and a number of questions will be addressed:
(A) what is the predicted frequency with which binary compact objects of
interest form in our Galaxy and out to extragalactic distances, what
are the uncertainties of these predictions, and what do they imply
about gravitational-wave detection, (B) what are the physical
properties of these binaries (e.g., masses, eccentricities, spins,
velocities) and how can gravitational-wave data analysis methods be
optimized for their detection.

Undoubted confirmation of the existence of gravitational waves as
fundamentally predicted by the theory of general relativity can be
provided only by their direct detection, expected by observatories such
as LIGO. The detectability of binary compact objects depends on a
number of factors related both to the astrophysical properties of the
sources and the capabilities of the observatory. The research described
above will contribute to the advancement of our understanding of the
most promising gravitational-wave sources, optimize the relevant data
analysis methods, and therefore improve the detectability prospects for
LIGO.